Mapping Attenuative Dispersion of Seismic Body Waves in and Around the New Madrid Seismic Zone

9706720 Mitchell This research involves the mapping of attenuative dispersion along paths through the source zone of New Madrid earthquakes as well as along paths outside of, but contiguous to, that zone. Both theoretical and observational research has shown that waves which have been attenuated by either intrinsic anelasticity or by scattering processes also exhibit dispersion. Attenuative dispersion associated with regional seismic phases has been found to be easily measurable in regions where those phases attenuate rapidly with distance. Abundant amounts of data obtained from PANDA stations, as well as from USNSN stations, in and surrounding the New Madrid seismic zone should be available for these studies. Relating the variation of Q to the properties of the crust may provide new information on earthquake processes in the New Madrid region. This research is a component of the National Earthquake Hazard Reduction Program. ***